Comparative Biogeochemistry of Soil Humic Substances in Forested Watersheds

The patterns of variation in soil humic substances in forests will be investigated and equilibrium and kinetic models that predict the behavior of humics in these systems will be developed. More specifically the goals of the research are to: 1) identify the analytical methods that provide the best discrimination among soil humic samples; 2) quantify the range of chemical and functional variation in soil humics at the local and interregional scales; 3) determine how the variation is related to environmental differences in plant species composition, soil drainage, season, and other soil physical.chemical parameters; and 4) develop a quantitative model that accounts for the chemical behavior of humic substances in two study watersheds. The two watersheds to be studied are the Big Moose/Pancake.Hall Creek in the Adirondacks of New York and the Camp Branch watershed in the Cumberland Plateau of Tennessee. They provide contrasting combinations of forest cover, soil orders, and climate. The hydrologic transport and major ion chemistry have been well studied and so the results of the humic acid study can be integrated into a well understood biogeochemical framework. State.of.the.art empirical and modeling techniques will be used in the humic acid research. For example, XAD.8 adsorption chromatography will be used to isolate hydrophobic and hydrophilic acids from material samples. The ILWAS model, a geochemical model recently developed for acid rain research, will form the basis for representing ecosystem.level behavior of humic substances. The significance of this research is related to the fact that many of the key reactions and processes affecting the biogeochemical behavior of elements are controlled by soil humic substances. For example, soluble organic acids, including humic and fulvic acids exert a major influence on the rates and stoichiometries of mineral weathering, phosphorus and nutrientcation availability, and leaching in surface soil horizons. This research should further our understanding of factors controlling biogeochemical cycling in forests and provide an enlarged scientific management basis for these systems. Dr. Cronan has a very good record of productivity in research on forest soils. The institutional support available to him is adequate.